Collaborative Research: Permian and Triassic Icehouse to Greenhouse Paleoenvironments and Paleobotany in the Shackleton Glacier Area, Antarctica

The focus of this collaborative project is to collect fossil plants, wood, and sedimentary and chemical information from rocks in the Shackleton Glacier (SHK) area of Antarctica. This information will be used to reconstruct plant life and environments during the Permian and Triassic (~295-205 million years ago) in Antarctica. This time interval is important to study as Antarctica experienced a large glaciation in the Permian followed by deglaciation and recovery of plant and animal life, only to be subjected to the largest extinction in Earth history at the end of the Permian. After the extinction events, the climate in Antarctica continued to warm extensively and there were forests growing close to the paleo-South Pole. These ancient environments provide a natural laboratory in which to study the effects of climate change on plant life. The results of this project will advance the field in the areas of changing sedimentary patterns during global cooling and warming, as well as plant evolution during times following glaciation and during global warmth.

This project will study the extent of the Gondwana glaciation in the SHK area, the invasion and subsequent flourishing of life following glacial retreat, and the eventual recovery of plant life after Late Permian extinction events. Only in Antarctica does a complete polar-to-near-polar succession occur across this climatic and biologic transition. The SHK area is an important one as it is one of the few regions in the world where the Permian-Triassic boundary (PTB) is exposed within terrestrial rocks. The field and lab work for this project is organized around three hypotheses that address fundamental issues in Earth history, including changes in the extent and diversity of flora during the Permian build up to the Late Paleozoic Ice Age, the possible diachronous nature of the PTB, and that poor fossil preservation during the Early Triassic has given a false impression that Antarctica was devoid of plants during this time. The hypotheses will be tested by integrating various types of paleobotanical approaches with detailed sedimentology, stratigraphy, and geochemistry. Compression floras and petrified wood will be collected (constrained by stratigraphy) both quantitatively and qualitatively in order to obtain biodiversity and abundance data, and as a data source for paleoecological analysis. Standard sedimentologic and stratigraphic analyses will be performed, as well as paleosol analyses, including mineralogic and major- and trace-element geochemistry. Collections will also be made for U-Pb zircon geochronology to better constrain geologic and biotic events through time. Results of the project will be incorporated into educational and outreach activities that are designed to include women and under-represented groups in the excitement of Antarctic earth sciences and paleontology, including workshops in Kansas and Wisconsin, as well as links to science classes during fieldwork.